Meteorological Applications of Fully Polarimetric Doppler Radar

The proposed research is concerned with meteorological aplications of polarimetrically agile radar sensing, that is, determining properties of collections of scatterers (e.g. hydrometeors) such as size, shape, and orientation distributions from measured scattering or Mueller polarization matrices. It is argued that processing of fully polarimetric data should be done before time averages are made and correlations formed so that physical insight, based on vector wave scattering, can be focused on identifying an optimal combination of polarization parameters. The purpose of this work is to develop, test, and apply new polarimetric data processing algorithms in both, coherent and incoherent scattering regimes. The algorithms are aimed at 1) improving the accuracy of existing estimators of precipitation; 2) providing new "signatures" of cloud and precipitation phenomena e.g. rain vs. hail discrimination; 3) improving conceptual understanding and ranges of applicability of the coherent and incoherent polarimetric scattering regimes (scattering matrix vs. Mueller matrix description).